STAND AND DELIVER - The Play

The critically acclaimed film "STAND AND DELIVER" accomplished the formidable task of focusing national attention on the achievements of minority students in higher mathematics. As a motivational tool for educators, the film's value can hardly be overstated. "STAND AND DELIVER" will now have a second life as a play for the stage. The intimate human drama of the story of Jaime Escalante and his inner city A.P. calculus class will be re- written and confined to one set - a classroom - making it a natural for the theatre. Best of all, junior and senior high schools already have the resources to stage a first-rate production. Since almost all the roles depict students and teachers, "STAND AND DELIVER" should be a natural choice for school drama clubs across the country. The transformation of the movie into a play will take place in three stages: First, the screenplay is adapted into a stage play. Second, the initial stage production is mounted. Third, the play is published and made available to schools and theatre companies for local performances.